Problems in Theoretical Physics

A broad research program in theoretical physics will include
the study of superstring theory, particle astrophysics, the
application of field theory to complex physical problems,
neutrino masses and oscillations, the development of chaos
in quantum systems, and the numerical investigation of quantum
chromodynamics. Superstring theory is the exciting candidate
for a theory of all the fundamental forces, including gravity;
particle astrophysics addresses problems associated with the
very early development of the universe; and quantum chromodynamics
is the fundamental theory of the strong nuclear forces. Thus,
the investigations to be undertaken are of fundamental importance.